Conferences on Frontiers of Applied and Computational Mathematics, 2008-2010

Ahluwalia
DMS-0753092

The investigators organize an annual conference on Frontiers
in Applied and Computational Mathematics (FACM) on the campus of
the New Jersey Institute of Technology (NJIT) in Newark, New
Jersey. The conferences include the significant participation of
undergraduate and graduate students, postdoctoral fellows, and
junior faculty. The FACM conference series has been organized
over the past four years by the Department of Mathematical
Sciences and the Center for Applied Mathematics and Statistics at
NJIT and is partially funded through an NJIT Strategic Initiative
Plan. The conference has become a leading forum for the
dissemination of research in applied and computational
mathematics and applied statistics. The three year conference
plan for 2008-2010 is as follows: FACM '08 is a large (250-300
participants) general meeting in applied mathematics, involving
in particular mathematical biology, fluid dynamics, wave
propagation, and applied probability and statistics. FACM '09
and '10 are smaller (125-150 participants) focused meetings on
mathematical biology and fluid dynamics, respectively, which are
areas of focus in the Department.

This conference series brings together mathematicians,
statisticians, physicists, engineers, and biologists to share
results of their research in applied and computational
mathematics and applied statistics. The broader impacts are that
significant cross-fertilization takes place during and after the
conferences between researchers in different disciplines who
utilize the methods of applied mathematics, statistics and
numerical computation. For students and postdocs, this is a
major learning experience that helps them with future
presentations and research. For many of these students, such a
local research conference is their first exposure to high quality
research being undertaken at other research institutions. This
exposure helps students strive to emulate the quality of these
research activities. Past FACM conferences have an excellent
record of participation of women and underrepresented minorities,
and special efforts are made to continue this trend.